MRI: Acquisition of a Beowulf Cluster for Research and Education in the Computational Sciences

With support from the Major Research Instrumentation (MRI) Program, the Department of Chemistry and Biochemistry at Duquesne University will acquire a Beowulf cluster. This equipment will enhance research in a number of areas including a) the theoretical prediction and ultimate synthesis of small nonprotein agents that control gene expression through site-specific binding and induced bending of DNA; b) development of new materials in nanotechnology; and c) development of a solution to carbon dioxide sequestration.

A cluster of fast, modern computer workstations is vital to serving the computing needs of active research departments. Such a "computer network" also serves as a development environment for new theoretical codes and algorithms, provides state-of-the-art graphics and visualization facilities, and supports research in state-of-the-art applications of parallel processing. These studies will have a significant impact in a wide number of areas, including biochemistry, materials science and environmental chemistry.